Hyperthermophilic Archaebacteria: Metabolic and EngineeringStudies

This work addresses both scientific issues and technological problems related to hyperthermophilic archaebacteria, their metabolic processes, and associated biomolecules. The genus, Pyrococcus (which includes two species: Pyrococcus furiosus and Pyrococcus woesei), is comprised of anaerobic heterotrophs growing optimally at approximately 100 C. Given the rapid growth rates and relatively high cell yields for the bacteria in this genus, it represents an important biotechnological opportunity for the isolation of thermostable enzymes and for biotransformations at elevated temperatures. Work will focus on optimization of growth rate and biomass yield, engineering analyses of important metabolic characteristics, and on efforts to identify enzymes of potential industrial significance. The results from this study will be important in solving the myrid of engineering problems associated with large-scale cultivation and utilization of hyperthermophilic microorganisms (i.e., those capable of growth at or above 100 C). These recently discovered bacteria are not yet well characterized but hold great potential from a biotechnological perspective. Studies, such as the one described here, are important in providing a basis on which research in this emerging area can develop.